Supporting the Success of Physical and Quantitative Sciences Scholars in Rural Appalachia

This project will contribute to the national need for well-educated scientists, mathematicians, engineers, and technicians by supporting the retention and graduation of high-achieving, low-income students with demonstrated financial need at Marshall University. A total of 36 scholars pursuing a B.S. in Chemistry, Geology, Physics, Data Science, Mathematics, and Statistics will receive scholarships averaging $15,000 for up to five years. Scholars will receive faculty and peer mentoring and the project will build strong scholar cohorts through an innovative, phased approach to support for students at different undergraduate career stages. Additional activities for scholars include supplemental instruction, particularly around gateway courses, and career development programming.

The overall goal of this Track 2 Scholarships in STEM project is to increase STEM degree completion of academically talented, low-income undergraduates with demonstrated financial need. There is a significant national need to grow the STEM workforce and nurture key talent that will ensure economic competitiveness and provide domestic leadership across critical sectors. This project directly speaks to this need by supporting STEM student success, which will strengthen the workforce in energy production and transition, environmental remediation, advanced materials, infrastructure monitoring and sensing systems, advanced manufacturing, health analytics, and other key areas of need. The project will be assessed by an experienced evaluator, and the data generated will contribute to the knowledge base regarding effective strategies to support talented, low-income students in STEM. This project is funded by NSF’s Scholarships in Science, Technology, Engineering, and Mathematics program, which seeks to increase the number of academically talented, low-income students with demonstrated financial need who earn degrees in STEM fields. It also aims to improve the education of future STEM workers, and to generate knowledge about academic success, retention, transfer, graduation, and academic/career pathways of low-income students.